Mathematical Sciences: Theory of P-adic Hecke Algebras and Iwasawa Theory for CM Fields

Professor Hida will work on the theory of p-adic Hecke algebras and their applications to Iwasawa theory of CM fields. He will also work on studying forms of half integral weight over totally real fields, the construction of p-adic symmetric square L- functions and their application to the cyclotomic Z-p tower of these fields. This project falls into the general area of arithmetic geometry -a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.